REU Site: Verification and Validation for Software Safety

Software safety is critical to many projects conducted
by both private industry and the government. After the
Challenger accident, NASA adopted a safety policy based
on a National Research Council report that requires every
project to take an organized and systematic approach to
identify safety hazards or unsafe situations and practices,
and to follow appropriate steps to assure adequate safety.
At the REU site to be established undergraduates participate
in research on verification and validation for software
safety: from, initially, a series of training seminars on
the necessary background knowledge, to becoming involved
in one of several specially designed research topics
according to their interests. Topics include safety analysis,
model construction and simulation, validation test generation
and execution, etc. Interaction between the students and
faculty mentors is emphasized. Follow-ups are also conducted
with the students after the summer program to prepare their
results for presentation at conferences and publication in
journals.

The research subject is software safety with a focus on the
analysis and integration of failure conditions with functional
specifications, the use of assertions in formal specifications,
and validation not only for testing software under normal
conditions but also for showing that unsafe states cannot be
generated by the software as the result of single or multiple
erroneous inputs. This project allows students from
underrepresented groups or universities with limited research
opportunities to experience cutting-edge research in software
engineering and to gain proficiency in a broadly applicable
skill set, including critical thinking, research methods,
problem solving, and oral and written communication -- all of
which are very important for success in graduate programs and
careers in science and technology research.